Tenth International Symposium on the Chemistry and Biology of Pterdines March 21-26, 1993 in Orange Beach, Alabama

This proposal is a request for funds to support travel (travel+ registration + subsistence) for 3 USA and 2 Foreign students to attend the Tenth International Symposium on the Chemistry and Biology of Pteridines to be held March 21-26, 1993. %%% This award funds attendance by students at the Tenth International Symposium on the Chemistry and Biology of Pteridines (March 21-26, 1993). It is important to involve students in international meetings since this is one of the most stimulating environments available. The meeting itself is important in summarizing recent progress in the field, in relating current to past work, and in stimulating scientific collaborations between investigators. Pteridine research involves problems stretching from human metabolic biochemistry to the colors of butterfly wings.